U.S.-France Cooperative Research: Ionic Conductivity of Nanostructured Materials

9815788
Tuller

This three-year award for US-France cooperative research in materials research involves Harry Tuller of Massachusetts Institute of Technology and Philippe Knauth of the Universite de Marseille. It adds an international dimension to a GOALI grant with Ford Motor Company's Research Laboratories on the utilization of nanostructured, semiconducting ceramic oxides. The international project will investigate nanocomposites for enhanced ionic conduction. High ionic conductivity is key to developing advanced batteries, fuel cells, sensors, and electrocatalysts. The US investigator brings to this collaboration expertise in ionic conductors and thermodynamic theory. This is complemented by French expertise in electrochemical measurements and in the preparation and characterization of ionic conductor composites and nanostructured materials.